A High Performance Network Connection for Research and Education at Indiana University and Indiana University-Purdue University Indianapolis

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for the installation and operation of a DS-3 ATM connection to the MCI POP in North Royalton, OH for access to the Very High Performance Backbone Network Service (vBNS). Applications include: - Scientific Applications on Arrays of Multi-Processors - HPC++ parallel high performance C++ compiler group - Problem Solving Environments Group - virtual laboratory project Collaborating with: - California Institute of Technology - Drexel University - Indiana University - Los Alamos National Laboratory - New Mexico State University - University of California at Irvine - University of Oregon The award provides partial support of the project for two years.